Demand Responsive Hierarchical Control Strategies for Freeway Corridors

This project is investigating the control strategy for freeway corridors. Factors, such as, lane changing, merging, diverging, weaving, ramp metering and interactions with arterials are included in developing a dynamic two and three-dimensional continuum model. Results will be useful in the area of communications and control hardware for freeway control strategies.